Replacement of Mass Spectrometer and Improvement of Stable Isotopic Facilities

This award provides one-half the funding needed to acquire a modern ratio mass spectrometer that will be installed and operated in the Department of Geology and Geophysics at the University of Utah. The University of Utah is committed to providing the remaining funds necessary for this purchase. The new mass spectrometer will replace a fourteen-year old spectrometer which is obsolete and does not provide the analytical capabilities to solve modern research problems. Specifically, the new spectrometer system will allow the analysis of very small gas samples, a feature required by a growing number of research projects undertaken by the Principal Investigator, colleagues, and students at the University of Utah.